SGER: Strategies for Increasing Stability of Self-Assembling DNA Nanostructures

SGER: Strategies for Increasing Stability of Self-Assembling DNA Nanostructures
PI: Thomas H. LaBean
DNA nanostructure self-assembly is being developed as a "bottom-up" approach for the
fabrication of desired patterns and structures with feature sizes smaller than achievable with conventional
lithography techniques. The exploratory research proposed here aims to increase the stability of DNA
nanostructures by incorporating isoG/isoC base pairs within and between DNA building blocks, by
facilitating ligation between abutting oligonucleotides, and by exploring interstrand chemical crosslinking.
The long-term goal of the proposed project is to develop methods for stabilizing DNA and
biomolecular nanostructures to increase production yields, improve the halflife, and diversify the physical
and chemical conditions under which the structures are useable. In addition, it has been noted, that
attachment of nanomaterials, for example metallic nanocrystals or large proteins, to the component DNA
strands prior to assembly into lattices can result in assembly difficulties and decreased size of the
resulting superstructures. Stabilized lattices may help to overcome these issues.
Summary of Proposed Research Tasks: 1). Develop DNA self-assembly materials and techniques
for formation of larger addressable arrays and lattices. 2). Incorporate stabilizing strategies, including
isoG/isoC and ligation into DNA tile lattice designs. Perform nanoscale structural characterization. 3).
Investigate interstrand cross-linking via chemical bridges within DNA building blocks. 4). Test the
stabilized nanostructures as templates for metal deposition and scaffolds for immobilization of
conducting, semi-conducting, and dielectric nanomaterials.
The proposed project fulfills the goals of the CCF Division and of the Emerging Models and
Technologies Program by advancing fundamental capabilities in computer science and engineering using
advances and insights from areas as diverse as biological systems and molecular engineering. The
proposed research innovations enable fundamentally different ways of approaching the fabrication of
computing and communications hardware. The intellectual merit of the proposed activities is high
because the project brings together cutting-edge research in DNA self-assembly with new synthetic
basepair options and chemical cross-linking procedures, and from the fact that the PIs lab is uniquely
qualified and poised to execute the proposed study at this time. There is a high likelihood that the research
tasks will be completed as described and very high scientific and technological payoffs when they
succeed. Broader impacts of the proposed work include the possibility of stabile DNA nanostructures for
application not only to computing but also to biomedical uses, as well as the certainty of establishing
research training opportunities for the next generation of creative experts in bioinspired design, molecular
engineering, self-assembly, and nanostructure templated chemistry.